Global Modeling and Diagnostics of Plasma Processing Reactors

Abstract for Demetre Economou / University of Houston / CTS-9216023 A combined modeling and experimental program is proposed to improve the understanding of plasma processes such as plasma etching and plasma deposition of thin films, and to aid in the development of new plasma reactors. The work proposed here represents an extension and continuation of previous work. The argon/chlorine plasma system will be investigated. Two kinds of glow discharge models will be considered viz. an overall glow discharge model and a simpler two-region model. Solutions of the time-dependent Boltzmann equation will be sought to obtain information on electron transport and reaction coefficients; these results will be integrated with results for neutral transport and neutral reaction. Model predictions will be compared to experiment. Spatially resolved optical emission spectroscopy, laser interferometry, and Langmuir probe measurements together with mass spectrometric measurements and ion flux and energy analysis will be carried out. The model will be applied to three kinds of reactor configurations viz. parallel plate reactors, electrodeless plasmas and the source region of ECR reactors. Silicon and GaAs will be used as substrates for etching studies.